Statistics Research Computing Equipment

9508296 Speckman The Department of Statistics at the University of Missouri-Columbia will purchase computing equipment which will be dedicated to support research in applied and mathematical statistics. The equipment will be used for several research projects including, in particular: (1) Topics in nonparametric function estimation (2) Topics in Bayesian analysis (3) Order restricted partial likelihood inferences (4) Wavelets and image analysis (5) Bootstrap prediction intervals in state-space processes